RAPID: Operations and Data Analysis for a CubeSat Mission to Study the Upper Atmosphere

Space weather affects satellites, communications, and navigation systems that modern society depends on, yet key processes linking Earth’s atmosphere to near-Earth space remain poorly understood. This project enables operations and early data use from a newly launched small satellite mission that measures electromagnetic energy propagating into space from below. It provides a unique and time-sensitive opportunity to maximize the science return and better understand the drivers of space weather. The project team will provide openly accessible data for further use in space science research. The project also supports workforce development by training students in hands-on space mission operations and data analysis. It benefits society by advancing knowledge of space weather, which is essential for human exploration of space and national security.

This project supports early operations, data validation, and initial science from the Canvas cubesat mission, which measures electric and magnetic components of very low frequency (VLF) waves in low-Earth orbit. These observations enable quantification of how electromagnetic energy from lightning and ground-based transmitters penetrates the ionosphere and propagates through near-Earth space. The RAPID effort focuses on maintaining uninterrupted spacecraft operations, validating and refining the end-to-end data processing pipeline using flight data, and rapidly producing calibrated data products suitable for community use. Early analyses will include transmitter overpass validation tests, case studies of lightning-driven wave events, and short-duration statistical studies to establish initial spatial and temporal variability. These results will provide the first continuous global constraints on VLF energy input and transmission, addressing longstanding gaps in understanding atmosphere–ionosphere–magnetosphere coupling. The project establishes the foundation for longer-term studies that will inform models of wave propagation and radiation belt dynamics.